Research in Schroedinger Operators

DMS-0400940
Title: Research in Schroedinger operators
PI: Dirk Hundertmark (University of Illinois)

ABSTRACT

The PI proposes research in three areas in the
spectral theory of Schr"odinger operators.
Firstly, the PI will continue work on bounds for eigenvalue moments of
single-particle Schr"odinger operators, the Lieb-Thirring inequalities.
Lieb-Thirring inequalities are known to be an indispensable tool in the
spectral theory of Schr"odinger operators, especially for the study of
macroscopic Coulomb systems. Besides their original application, they
have proven to be useful in other fields, for example, in non-linear PDE.
The objective of the proposal is twofold: to achieve a
good understanding of the scalar case for small moments and low
dimensions, and to develop a general method to lift bounds from the
scalar case to operator-valued potentials. In this way, estimates in
low dimension would have immediate consequences for bounds in higher
dimensions.
Secondly, the author plans to study Wegner estimates for the integrated
density of states for singular random potentials. These are important
a-priori estimates in the spectral theory of random Schr"odinger operators.
The third problem focuses on spectral properties of a non self-adjoint
matrix Schr"odinger operator, given by the linearization of NLS around
solitons. In particular, the question of embedded eigenvalues will be studied.
These results should lead to a better understanding of asymptotic completeness
for focusing NLS.

The proposed projects aim at some basic questions in
mathematical physics, more precisely, the rigorous study of non-relativistic quantum
mechanics. Recent results on Lieb-Thirring inequalities have revived the general
interest in this field and have proven useful in other areas of mathematical physics.
It is expected that they will continue to do so. One aim of this proposal is to
find new tools to establish these kind of inequalities.
Random Schr"odinger operators model the behaviour of electrons in disordered
matter. It is a fact from every day life that highly disordered materials are bad
conductors. In the last two decades, our mathematical understanding of this and
related effects has grown rapidly. But basically all models still have some unrealistic
assumptions. An important a priori estimate for the spectral theory of random Schr"odinger
operators are regularity results (i.e., smoothness) for the so-called density of states.
Despite a lot of attention from several groups working in theory of random Schr"odinger
operators, the regularity proofs are still mainly based on the old ideas of Wegner. They
require strong nd mainly technical assumptions, excluding most physically relevant rough
random potentials. Except for some very special cases, singular random potentials are still
out of reach of the existing methods. So new ideas and, in particular, a better understand
of the underlying physical mechanism will be required, in order to be able to establish the
regularity results for rough random potentials.
The third problem, embedded eigenvalues for a certain class of non self-adjoint matrix
Schr"odinger operators, is motivated by the study of the non-linear Schr"odinger equation.
By itself it is still a problem in linear functional analysis. However, with the twist that
very a fine and detailed knowledge of the properties of this linearized operator is needed
in order to improve the understanding of the long-time properties of solutions of the
non-linear Schr"odinger equation.